What is a Secure Computation Protocol

The research goal is to develop a successful and satisfactory foundation of the theory of secure protocols by: o Identifying the key quantities that govern the security of distributed protocols, o Devising the most general and robust notion of secure computation that respects these identified quantities, and o Forging a set of tools for making it easier to prove or disprove the security of distributed protocols. ***